Electronic Structure Calculations of Peptide Stabilized CdS Nanoclusters

Professors Jeffry Madura and Jeffrey Evanseck of Duquesne University are supported by the Theoretical and Computational Chemistry program for research involving the development of hybrid and multi-level methods to study cadmium sulfide nanoclusters bound to peptides. A QM/MM approach and the ONIOM method are used in this research which has implications in materials science and nanotechnology. The broader impacts of this work are, thus, mostly on the materials science field but will also have wide applications in other areas of science. The project also includes an outreach component to the State University of New York at New Paltz and undergraduate students from that campus are participating in the research at Duquesne.